Workshop on The Living Heritage of Artificial Intelligence

Abstract

IIS - 0740093
Workshop on The Living Heritage of Artificial Intelligence Sussman, Gerald J.
Massachusetts Institute of Technology

This proposal is to convene a workshop and begin an extended dialogue on the emergence of "Artificial Intelligence", it's topical evolution over the past 50 years and begin a process of developing possible roadmaps of future work in AI informed by an analysis of the successes and failures of the past. Simultaneously, it will produce a plan and suggest processes for the preservation of key materials from past research milestones in ways that facilitate new discoveries and new perspectives. From a preservation research perspective, special challenges exist with regard to artifactual materials such as tapes, punch cards, documents, hardware and the interfaces to the materials. One theme of the workshop will address current preservation efforts from a variety of perspectives and backgrounds.